Improvement of Research Facilities at Marine Science Center,Mahant, MA

The Marine Science Center of Northeastern University is the only marine station with year-round research and teaching facilities, as well as resident faculty and staff, located on the coast of New England north of Cape Cod. It is also the only such marine laboratory within an hour's drive of most universities in the greater Boston area. The location, well north of Boston Harbor, provides high quality seawater and excellent intertidal and subtidal habitats for field study and organism collection. Funded research at the Marine Science Center encompasses a variety of projects in marine ecology, behavior, neurobiology, structural biology, biochemistry and molecular biology. At present, development of new projects and addition of new resident and visiting investigators are severely limited by available research space. This award will increase research space by providing partial funding for a 6000 square foot addition to the present laboratory building and two pieces of badly needed equipment. The expansion will provide space critically needed for funded projects by resident faculty, other investigators from Northeastern University, and visiting researchers from other academic institutions in the Boston area, other parts of the U.S. and overseas.